A Holistic Approach for Preparing Students to Learn and Lead in a New Manufacturing Paradigm

9411522 Henderson ABSTRACT Holistic Approach for Preparing Students to Learn and Lead in a New Manufacturing Paradigm Arizona State University has team with Motorola, Intel, Honeywell and others to infuse manufacturing education across the engineering curriculum at Arizona State -- from the freshman year through the master's level. This project will focus on leadership training, total quality principles, recruiting displaced defense workers and underrepresented groups, and enhancing the curriculum. The long term goal is to produce a new breed of engineer for the 21st century, one equipped with the hard and soft skills necessary to change manufacturing. ***